Harvesting Water from the Atmosphere: Contaminant Transport, Evolution and Removal (Harvesting WATER)

Water scarcity impacts humans and the environment. Surface and groundwaters are declining as sources owing to water accumulation in reservoirs like oceans and the atmosphere. Atmospheric water harvesting (AWH) can pull liquid water from air. However, the safety of AWH water is unknown, posing a potential health risk. This project will determine how, when, and where AWH can be safely used. The results will benefit industries that use water, especially those in locations that do not have access to traditional water sources, such as some data centers for artificial intelligence. The project will provide opportunities for undergraduates to participate in the research and, through a University of New Mexico Science Communication Fellowship program, to share project results with the public at conferences and on websites.

This project will advance understanding of AWH water quality. It will examine transfer of contaminants into atmospheric waters, contaminant changes in water over time, and separation of contaminants through air and water treatments. The project will determine whether: (1) atmospheric contaminants, including particulate matter and gases, partition into liquid water during AWH; (2) atmospheric particulate matter dissolves in AWH waters over time, increasing conductivity and dissolved metals concentrations; and (3) due to dissolution and contaminant evolution, advanced treatment beyond air and water filtration is required to meet drinking water quality standards. The project objectives will be: (1) to elucidate transport mechanisms between atmospheric contaminants (particles, trace gases, aerosols) and AWH water contaminants (trace metals, organics, ions); (2) to understand AWH physical and chemical water quality, stability, and aging during water storage; and (3) to design air and water treatments to target AWH contaminants. This project will integrate field measurements and laboratory studies to identify how atmospheric contaminants enter AWH water, how they transform during storage, and how they are removed. The project outcomes will help understand potential applications and safety of AWH as a water resource.